EAGER: MAKER: Inspiring the Flathead Indian Reservation's Next-Generation Workforce through Mobile, Cultural Making

Makerspaces provide powerful opportunities for STEM and role-model engagement with youth but remain scarce in rural, tribal communities. This project will create a mobile makerspace that weaves together conventional and cultural making, rich with American Indian STEM role models and traditional tools and practices of the Salish, Kootenai, and Pend d'Oreille tribes. The project pursues the research question: does pairing cultural and conventional makerspace activities advance design thinking and community capacity in making? The project is designed to develop a national model for community-driven making in rural, tribal communities.

By creating a mobile, cultural makerspace and a cultural making curriculum and engagement model to share with the informal science education and maker fields, this project seeks to enable cultural tools and knowledge to increase making capabilities in rural, tribal communities. Through visits to each of the communities on Montana's Flathead Indian Reservation, the project aims to increase K-12 students' interest in and awareness of cultural making and design thinking; their access to cultural role models engaged in design thinking; and their creative confidence, experimental mindset/mindshift, and design thinking skills. Designed in partnership with cultural heritage experts, craftspeople, and tribal elders, the project's mobile makerspace will engage an estimated 5,000 K-12 youth in an array of school and community settings. All of these efforts pursue the end goals of instilling a sense of belonging in STEM, design thinking, and making, as well as empowering a homegrown, American Indian STEM workforce on the Flathead Reservation.

This project has the potential to introduce and engage a wide range of learners, including meritorious students, from a rural American Indian community to making specifically, and to STEM more broadly, in a culturally aware way. The planned sustainability of the proposed program also ensures continuity of potentially engaging all learners, including those of high merit but insufficient means; therefore, S-STEM co-funding is deemed appropriate for this project. This in-context engagement/introduction to making will present a pathway for learners to pursue STEM degrees. This project is a part of NSF's Maker Dear Colleague Letter (DCL) portfolio (NSF 15-086), a collaborative investment of Directorates for Computer & Information Science & Engineering (CISE), Education and Human Resources (EHR) and Engineering (ENG).